Collaborative Research: Submarine Earthquake Geology in the Marmara Sea Gap

Funds are provided to process the data collected on two geophysical cruises in the Sea of Marmara. The PIs will combine the results from the collected chirp, sidescan, and bathymetric data with detailed sedimentology of piston cores and land-based observations to work out the configuration of the fault zone and to determine the history of paleoseismicity by correlating submarine landslides and turbidites to individual paloearthquakes. The work will have important societal relevance as it will lead to better understanding of the nature of deformation associated with the earthquakes and their history in the region.